Molecular Basis of Antibody - Antigen Interactions

The long term objective of these studies is to further our understanding of the molecular basis of the interaction between protein antigens and immune system receptors. Dr. Paterson will use a model system consisting of monoclonal antibodies to a structurally defined protein, cytochrome c. Dr. Paterson has obtained a specific antibody, E8, and is collecting x-ray data on the free and antigen complexed form in Dr. Elizabeth Getzoff's laboratory. Dr. Paterson wishes to complete and extend these studies to other horse cytochrome c specific monoclonal antibodies and anti-idiotypic antibodies to E8. She is also examining the interaction of antibody/antigen complexes using hydrogen exchange and 2D NMR. She has completed these studies on E8 and finds they agree well with previous epitopic assignments and with the general nature of antigenic sites on other proteins determined by other workers using x-ray crystallography. This information from the antigenic epitopes on horse cytochrome c will be used to modulate antibody/antigen affinity through single residue changes in the antigen using site directed mutagenesis. Dr. Paterson will also extend these studies to the lysozyme model antigen system for which x-ray structural data is known for two monoclonal antibodies. single residue changes in the antigen using site directed mutagenesis. Dr. Paterson will also extend these studies to the lysozyme model antigen system for which x-ray structural data is known for two monoclonal antibodies.